Permit Procurement for the 1990 Oduvai Archaeology Project

In 1989, Dr. Robert Blumenschine, in collaboration with Tanzanian scientists, began a long-term archaeological project at Olduvai Gorge, Tanzania. The goal of the research is to survey across an exposed paleo-landscape and to examine the distribution of faunal and humanly derived artifactual material. On this basis, it should be possible to determine how the very early humans who inhabited this region over 1 million years ago subsisted and were able to survive with extremely simple technology in a difficult environment. The first exploratory phase of this project met with great success, and Dr. Blumenschine now wishes to initiate a much larger second phase. However, because of disagreements between Tanzanian government authorities, it is very uncertain whether a permit will be issued to allow continuation of the research. The situation requires skillful advocacy and negotiation by Dr. Blumenschine, and the funds provided by this award will allow him to travel to Tanzania and speak directly to the relevant individuals. It is unlikely that any other course of action will permit research to continue in 1990. This award is necessary to facilitate continued research at one of the most important known archaeological sites.